Aircraft, Shop and Logistical Support of SUNY Project: Acquisition and Use of 222Rn Measurements in Development and Validation of a Global Transport Model

This interagency transfer will pay for a NASA Learjet 705. Funds will cover the cost of fitting scientific instruments aboard the aircraft, as well as allowing 30 flight hours for collecting atmospheric radon observations. This aircraft is being used under the auspices of an existing grant (Mark Kritz, SUNY Albany), and is critical to the success of that project.